Quantum Coherence

A fundamental aspect of quantum phenomena is the non-local coherence of the
quantum wave that describes the state of a particle, which is called the
wave-particle duality. A consequence of this is the Heisenberg uncertainty
principle according to which there is a minimum to the product of the
uncertainties of the position and momentum or time and energy of the particle
that is given by the Planck's constant. We plan to investigate the latter
uncertainty principle in relation to the general relativistic gravitational
field, using our earlier work that obtains this uncertainty relation using only
measurements intrinsic to the system under investigation. We shall also use new
non-local quantities that we have introduced, called modular variables, to study
the non-local quantum coherence of the wave function. This will be used to
investigate the Aharonov-Bohm effect (discovered by the PI), which is the
non-local interaction of the wave function with the electromagnetic field. Some
new aspects of scattering due to the Aharonov-Bohm effect will be studied. The
latter work is relevant to a wide class of problems involving surface waves and
polarized light propagating in optical fibers, where various impurities may be
present.

The quantum coherence of the wave function also opens up the possibilities for
secure communication using quantum systems and the construction of a quantum
computer. Computations which would take a present state-of-the-art computer more
than the life-time of the universe to do would be done in less than a second by
a quantum computer. We shall try to use the weak measurement, discovered by the
PI, to obtain better quantum communication. We shall also try to use the geometric phase discovered by the PI and a co-PI towards constructing a quantumcomputer.